Operator-Valued Free Probability Theory

Abstract
Shlyakhtenko

Shlyakhtenko will study classes of operator algebras arising in connection
with Voiculescu's free probability theory. The main emphasis of this
research is placed on the study of operator-valued free random
variables and operator algebras that they generate. Analysis of these
von Neumann algebras is intimately tied with the goal of
classification of free Araki-Woods factors, which are free probability
analogs of ITPFI type III factors. Such analysis is also important
for understanding of subfactors and automorphisms of amalgamated free
product algebras. One of the goals of the present research is to
develop free entropy-based techniques for dealing with operator-valued
random variables.

Free probability theory is a highly non-commutative parallel to basic
probability theory. Matrix-valued random variables (such as random
matrices) naturally fit in the non-commutative probability framework;
the asymptotic behavior of large random matrices is well-modeled by
matrix-valued free random variables. Applications are in mathematics
to the theory of operator algebras, subfactors, ergodic theory, as
well as the theory of random matrices, which have connections with
certain physical models.